SST: Dynamics of Microbeam Sensor Arrays

1
Project Summary: SST: Nonlinear Dynamics of Microbeam Systems
Intellectual Merit: In the proposed study we aim to improve the operation of SPM cantilevers in
air and vacuum by investigating important effects due to nonlinearity, shape, and coupling to nearby
cantilevers. Simultaneous operations of microbeam arrays can lead to significantly increased
throughput in applications including chemical and force sensors, imaging, and data storage. These
effects can lead to dynamically interesting phenomena, including localization and parametric
instability. By understanding these effects, design and operation can be proposed which allow the
cantilevers to synchronize, leading to sensor enhancement. This proposed work will involve
modeling, analysis, and experimentation. In this work the nonlinear response of microbeams near
resonance will be investigated in detail and features will be mapped out that are important for
performance. The analytical investigations will focus on perturbation, symmetry, and phase
reduction techniques applied to weakly nonlinear models for microbeams, which will allow one to
predict the response near resonance. Experimental work will be used for parameter identification,
model verification, and to explore operating regimes suggested by the analysis.
The work will focus on the response of individual microbeams and one-dimensional arrays of
microbeams, such as those being developed for increased throughput of chemical sensors. These
arrays are composed of several nearly identical beams that are weakly coupled to their nearest
neighbors. Systems with these general characteristics are known to experience instabilities and
localized responses, wherein synchronization is lost and the vibration energy is concentrated in a
small subset of beams. The analytical part of the work will concentrate on how these instabilities
and localization are influenced by system and excitation parameters, and the manner in which they
affect overall performance of the sensor. In addition, analytical models that employ intentional
patterns of mistuning will be considered, which are known to minimize the effects of instability and
localization. The experimental work will be used to guide and confirm the analysis, and to test
systems that are designed to operate in a synchronous manner.
Broader Impacts: An integrated educational plan has been proposed which integrates outreach
with graduate education. Specifically, the goal would be to incorporate demonstrations and
explanations of observable phenomena that can be accounted for through an understanding of
nonlinear vibrations and dynamics, as well as topics from microscale and nanoscale engineering, to
existing outreach programs. The mechanics principles behind simple cantilever sensors can be used
to illustrate how simple physics principles are used to develop sensors, and show practical, exciting
application of science. At UCSB these programs will be developed through collaborations with local
teachers. At least one of these relationships has already been solidified with a teacher at Santa
Barbara Jr. High. At MSU, this outreach would occur via the MSU High School Engineering
Institute, which targets secondary school students and actively encourages participation in the
engineering sciences.
Broader impact in graduate education and technology transfer will be achieved in part through
partnerships with Veeco, a local company. Veeco has a long-standing relationship with UCSB.
Veeco is currently a member of the California Nanosystems institute, and has funded graduate
student interns at Veeco, including one from the PI's group. Veeco is interested in the technology
we plan to study in this effort, and will allow students to utilize equipment unavailable at UCSB.
Teaming: The proposed effort is a collaboration between Kimberly Turner (UCSB), Steven Shaw
(MSU), and Jeffrey Moehlis (UCSB), and will be carried out at their home institutions. The students
and PIs on both teams will be involved in all aspects of the project, keeping up to date via electronic
communication and by regular visits by the MSU group to the facilities at UCSB.